Developing Accurate Magma Depth Indicators in Igneous Zircon

Earth scientists have developed methods for dating igneous rocks (i.e., rocks cooled from lavas or magmas), and for estimating the temperatures at which they formed. However, estimating the depths at which igneous rocks formed is more complicated. All of this information is important for understanding the geologic setting for magma and crust formation. Some trace elements in igneous rocks correlate with depth but they are obscured by the weathering that eventually affects all rocks at Earth’s surface. However, the mineral zircon, common in many igneous rocks, survives weathering and preserves many trace elements. This project will develop methods for using trace elements in zircon to reconstruct the depths at which ancient magmas formed. This will give Earth scientists a new tool for studying crust formation throughout Earth history. The project will also engage in public science outreach, collecting igneous rocks to be set aside for use in public science education events.

Constraining the depth of magma formation and of ancient crustal thicknesses provides important constraints on ancient tectonic settings. Although most quantitative methods for estimating the pressure (i.e., depth) at which rocks formed are applicable to metamorphic rocks, certain trace element ratios in igneous rocks correlate with depth of magma formation or crustal thickness. However, weathering obscures these signatures in ancient crust. Zircon is a hardy (and date-able) mineral that preserves many trace element signatures from its parent magma but it presents additional complexities because it often records magma compositional evolution over long crystallization histories. In addition, the trace element parameters that correlate with depth also vary systematically with magma fractionation. This project will disentangle the effects of pressure and magma fractionation in zircon from magmas of known melting depth (constrained by other methods). Trace element ratios in zircon that show a similar response to increasing depth and increasing fractionation (e.g., increasing with both) will be paired with trace element ratios that show opposite responses to increasing depth and increasing fractionation (e.g., decrease during fractionation but increase with greater depth). Pairing these different classes of ratio isolates the effects of depth. A similar approach will be taken with other relevant factors such as magma water content. This approach will be used to develop quantitative depth indices for zircon. Where possible, the depth indices will be ground-truthed against geobarometry of mineral inclusions in zircon (e.g., titanium in quartz, aluminum in hornblende).